Reactions and Stereochemistry of Organometallic Compounds Related to Asymmetric Synthesis and Catalytic Activity

The goal of this project in the Inorganic, Bioinorganic and Organometallic Chemistry Program is the development of new methods for stereoselective synthesis of organic compounds based on compounds containing such transition metals as tungsten and molybdenum. Such methods are extremely important because the three-dimensional structure of a molecule can affect profoundly its chemical and biological properties. The two aims of the project are the development of new methods using metal complexes for asymmetric and regioselective syntheses and the elucidation of the mechanisms of stereoselective reactions which are synthetically useful. The potential utility of higher oxidation state organometallic complexes for these applications will be explored also. A new method will be developed for obtaining detailed structural information for organometallic compounds in solution. Ligands containing paramagnetic metal ions which bind to organometallics will be designed and synthesized. NMR measurements using these new shift reagents will allow detailed delineation of structure (angles and distances) of reactive organometallic species, especially catalytic intermediates, which exist only in solution.